Northern Caddoan Dictionaries Project

9875895
PARKS

This is the final part of a three-stage project whose goal is to compile
comprehensive reference dictionaries of Arikara and two dialects of Pawnee,
Skiri and South Band, closely related Caddoan languages spoken today by
fewer than a half dozen elderly tribal members in North Dakota and
Oklahoma. The project will produce databases from which dictionaries will
be generated in both printed and multimedia computer formats.

In stage 1, the PI established the dictionary databases on computer and
conducted fieldwork on all three dialects. In stage 2, using Microsoft's
Visual FoxPro, the project developed a new multimedia dictionary database
program for dictionary development. The PI reviewed and sound recorded in
digital format all entries and examples in the databases, and the sound
recordings were incorporated into the databases.

Stage 3, the current project, has three primary goals: (1) developing a
text processing database software program that will be linked to the
dictionary database program and will enable linguists to prepare texts in
parsed interlinear format and to import words, phrases, and sentences into
the dictionary databases; (2) incorporating a sound component into the
text processor database, linking spoken text (as sounded recorded on tape)
with written text; and (3) entering collections of Arikara and Pawnee texts
into the program and importing material from the texts into the dictionary
databases.

Project software programs will serve as computer tools that provide
linguists with efficient means of analyzing, manipulating, and presenting
large bodies of data. They offer a model of presentation that will
establish a new standard in endangered language documentation.